Absolute Differential Excitation Cross Sections of Molecular Oxygen by Electron Impact

This project will continue investigating excitation cross section measurements of molecular oxygen by electron impact. Previously, the PI studied the Schumann-Runge continuum, and longest and second bands. Under this proposal, the pseudo-continuum region will be studied. This program will determine absolute electron impact cross sections for all the important electronic transitions of molecular oxygen in the pseudo-continuum region. Differential cross sections for excitation of the identifiable electronic states in this region will be measured by a crossed-beam method.***